International Conference on Riemann-Finsler Geometry

Abstract

In 1854, B. Riemann introduced the notion of curvature for spaces with a family of inner products (Riemannian metrics). In 1918, P. Finsler studied the variation problem for spaces with a family of norms (Finsler metrics).
Recently significant progress in Riemann-Finsler geometry has been made by mathematicians around the world. In particular. many non-trivial examples of Finsler metrics of scalar (or constant) flag curvature have been constructed and several local classification theorems have been obtained.
Riemann-Finsler geometry also has applications in other areas such as mathematical psychology, general relativity, PDE, navigation problems, imaging process, and module spaces, etc.

This conference will provide a platform for mathematicians to communicate with each other and discuss the research projects for the future.
Meanwhile, this conference will provide a great opportunity for mathematicians in USA to understand Riemann-Finsler geometry and find motivation to work in this area.